Workshop: Visualization in Earthquake Engineering, to be held August 11-12, 1994, Chico, CA

9419177 Haws Experiments and computations can generate vast quantities of numerical data which are difficult to interpret. Visualization techniques are increasingly being applied by researchers to assist in this; for example to assist the researcher to discover basic phenomena normally masked within these large numerical data sets. While excellent visualization tools exist and are being developed, there is little knowledge or use of these tools by researchers in geotechnical earthquake engineering. The objective of this project is to introduce researchers and practitioners in earthquake engineering to the wide variety of visualization tools available today. Proper use of these tools requires understanding simple concepts (such as the basic principles of visual perception) as well as existing industry standards (such as broadcast video formats for displaying information). This workshop will emphasize the use of inexpensive (that is, microcomputer-based) computer platforms with a "hands-on" approach, and will include appropriate documentation and dissemination of the workshop materials to those who are not able to attend. It is expected that the use of these visualization tools will lead to improved earthquake hazard mitigation techniques. ***